Periodic Gene Expression in The Mitotic Cycle

Abstract 9405605 The naturally synchronous plasmodium of physarium will be utilized to isolate genes whose transcript levels peak during the last hour of the mitotic cycle. The cDNAs will be prioritized for further analysis. For practical simplicity, initial priority will go to genes present in single copy. Among these, top priority will go to novel genes, as estimated by partial DNA sequencing. The complete coding sequence will be obtained for one single-copy plasmodium- specific gene and for one single-copy gene expressed in both amoeba and plasmodial stages. A genomic clone will be obtained for each fully-sequenced gene, and used to disrupt the gene in order to determine whether its function is essential for viability. %%% The major periodic events of the mitotic cycle are DNA replication and mitosis. They must be regulated so that they occur alternately and only once per cycle. Many gene products involved in this regulation have been identified, notably protein kinases, phosphatases and cyclins. Regulation is achieved by periodic changes in the activities of these molecules, which can be achieved at the level of transcription, mRNA stability, protein stability, association with other proteins, and covalent modifications. This proposal focusses on periodic transcription, which for some genes is crucial for proper regulation of the mitotic cycle Many of the genes involved in mitotic cycle regulation may not be identifiable by classical genetic methods. This proposal uses an alternative method to identify novel genes that may be involved in mitotic cycle regulation. cDNAs for genes whose transcript levels peak during late G2 phase will be isolated, using the plasmodium of the protist Physarum polyacephalum as a source of transcripts to template the cDNAs. The plasmodium has a naturally synchronous mitotic cycle, so that changes in transcript levels are readily detectable. Moreover, the plasmodium can be grown to extra- ordinarily large mass, providing a sou rce of transcripts at precisely-defined mitotic cycle stages that will be used to template cDNA synthesis. mRNA from alternative mitotic cycle stages will be used for hybrid subtractions to enrich the cDNA library for clones representing periodic transcripts. Once periodic cDNAs are identified, their copy number will be determined, and further analysis restricted to single-copy genes. Next, gene expression will be studied both in the Physarum plasmodium and in the Physarum amoeba a haploid uninucleate cell similar to an animal cell. The cDNAs will be partially sequenced to determine which are likely to represent novel genes. Then, one novel, gene that is expressed only in the plasmodium and another novel gene that is expressed in both amoebal and plasmodial stages will be fully sequenced to investigate their coding potential. The requirement of each of these two genes will be tested by gene disruption. Success in this endeavor would create a foundation for identifying other periodic genes that may be involved in mitotic cycle control. For such genes, the special characteristics of the Physarum cell types would provide a powerful system for analyzing their role in the mitotic cycle and the timing and mechanism of their action. ***